CEDAR: Lidar Studies of the Arctic Middle Atmosphere at Poker Flat, Alaska

This award will support the deployment of a resonance lidar at the Poker Flat Research Range near Fairbanks, Alaska. The lidar will provide measurements of the arctic middle atmosphere from the upper troposphere to the lower thermosphere. The lidar employs scattering from molecules, aerosols, and metal atoms to yield measurements of density, temperature, aerosol backscatter ratio, and metal density in the stratosphere and mesosphere. The measurements will be used to address several topics of current research interest: the role of aerosols in the chemistry of the high latitude stratosphere, the occurrence of aerosols in the polar mesosphere, the temperature structure of the lower mesosphere and stratosphere, the structure of the mesospheric metal layers, and the characteristics of waves and tides in the mesopause region. The lidar measurements will be complemented by a variety of studies of the atmosphere and the aurora being conducted at the Poker Flat Research Range.